Low-and Ultralow-Energy Experimental Electron Attachment

9732160
Chutjian
Using two new, unique experimental techniques developed at JPL/Caltech, low-energy and ultra-low energy electron attachment will be studied in several atomic and molecular systems. The aim of this project is to explore the threshold behavior of dissociative attachment and to examine resonance structure very close to vibrational thresholds.